Los Angeles Basin Ground Motion Prediction From Tomographic Velocity Models

9416119 Hauksson This research is to investigate the effect of lateral variations in seismic velocity on the amplitude of damaging shear wave energy within the Los Angeles basin from the 1994 Northridge earthquake in order to resolve some of the questions of source versus structure as a cause of the damaging motion. A horizontal acceleration of 0.93 g was measured at Santa Monica and accelerations greater than 0.4 g were measured at other sites within the L.A. basin in phases that followed the direct S-wave by more than 5 seconds. These sites were farther from the source than sites within the Santa Monica Mountains that recorded smaller accelerations. This complexity in the pattern of peak accelerations may be caused by complications of the source rupture, for example directivity of a later sub-event, and may also be caused by waveform propagation effects through a complicated basin structure. This work is a step towards the ultimate goal of creating a 3-D model for general use for locating earthquakes within the Los Angeles basin and predicting the ground motion from earthquake scenarios from other source regions. This project is a contribution to the National Earthquake Hazard Reduction Program and is supported by the Northridge Earthquake Emergency Appropriation. ***